Floer Theories in Gauge Theory and Symplectic Geometry

Building on ideas and techniques developed in proposer's previous works,
the proposal is to pursue two projects related to aspects of Floer theory.
The first is to relate the 3- and 4-manifold invariants recently defined
by Ozsvath and Szabo (OS) with the Seiberg-Witten invariants (SW), based
on an extension of the geometric picture underlying Taubes's proof of the
equivalence of Seiberg-Witten invariants and Gromov invariants of
symplectic 4-manifolds. Since the two definitions (OS vs SW) are
drastically different and each has its own advantage, a relation of
the two should yield important consequences in low-dimensional topology.
The second project is to extend and generalize the proposer's recent
work on Floer-theoretic torsions. These are symplectic invariants
which on one hand refine the Floer homology, on the other hand have
interesting relations with "1-loop" Gromov-Witten invariants. The
relation remains to be better understood, yet it has already been
used to obtain results in symplectic topology which are beyond the
the reach of Floer homologies. Moreover, the Lagrangian intersection
version of this invariant should be regarded as a simplest example of
"open Gromov-Witten invariants", which though still not rigorously
defined in general, are expected to relate to the Chern-Simons invariants
according to the physicists (Vafa, Witten et al).

This proposal showcases the recent fertile interactions between
mathematics and high energy physics. Gauge-theoretic invariants,
enumeratitve invariants of holomorphic curves, and Floer theory
all have their origin in physics, yet have since yielded the most
important recent results in the fields of low dimensional topology and
symplectic geometry. The proposal deals with fascinating relations
among these physics-inspired invariants, and their applications to
topology.